Processing of High Transition-Temperature (Tc>77k) Supercon-ducting Materials: Glass Ceramic Approach

This project deals with the processing of high transition- temperature superconducting materials via the glass ceramic approach. The essential features of this study will be to dissolve the 1-2-3 composition oxide in a suitable glass composition, to form the samples in desired physical shapes and forms from the glass, to nucleate the superconducting oxide from the glass, and to remove the glassy matrix by chemical means.